NSF/CBNS Regional Conference in the Mathematical Sciences - Approximation Dynamics with Application to Numerical Analysis - June 12-16, 1995

9414241 Chicone The purpose of the conference is to provide a forum for an important series of lectures to be presented by Professor George Sell, University of Minnesota. He is a leading expert in the theory and application of dynamical systems, especially that part of the theory related to the dynamic processes of natural phenomena. Advances in the mathematical modeling, analysis and application of these processes are fundamental to our understanding of such diverse physical phenomena as weather, pollution of groundwater and rivers, aircraft flight, or the motion of blood through the human heart. The topic of the conference is central to current research in the area of dynamical systems and its practical applications. Professor Sell's lectures will range over the basis for a specific approach to understanding the long time behavior of dynamical systems (the approach being approximation by nearby systems that are amenable to analysis). He will also discuss the use of this approach for the design and implementation of computer software to solve some important physical problems. In accordance with the program description for the regional NSF/CBMS conferences, the organizers will invite participants primarily from the Mid-West. The funded participants will be chosen from the ranks of professional mathematicians and graduate students. The research programs of the professional participants should benefit in several ways from the conference. They will be able to learn an important new approach to solving problems that they may already be studying. Also, they will enhance the teaching mission of their home institutions by incorporating the subject matter of the conference into their graduate courses. Graduate students will be presented with cutting edge tool that will be a very useful component of their graduate education. In addition, some of them may well be influenced to enter an important area of research where many problems of enormous import remain unsolved.